The 2022 Polymath Jr Program

The Polymath Jr is an online program that provides hundreds of college students the opportunity to participate in mathematical research. This highly inclusive program allows each participant to choose how much they want to get out of the program by selecting how much time they want to dedicate. The program presents a variety of research projects in many branches of mathematics. Each project is mentored by a mathematics professor and graduate students. The program supports students who might otherwise have no opportunity to explore their mathematical potential. The participants learn how mathematical research is conducted, and some participants even publish papers in research journals. The program also helps participants explore various other engagement opportunities in mathematical research.

The 2022 Polymath Jr program will include research projects in number theory, combinatorics, topology, algebra, complex analysis, theoretical computer science, and more. The program focuses on questions that consist of separate parts at different levels of difficulty. The staggered projects allow supporting groups of students with varied mathematical backgrounds.